H Optimal Repetitive Control of Closed Loop Servohydraulic Testing

This project seeks to develop controller design procedures for repetitive control systems that relate controller design to specified levels of performance of the system. Procedures will be developed for the simplified case of repetitive controllers with large time delay values as well as the more general case where the time delay values are not large. The controller design procedure will be based on H infinity control theory and robust performance will be sought. Available theory for H infinity control of distributed parameter systems will be modified and applied to repetitive control systems. Currently available repetitive controllers will also be viewed in an H infinity framework so that the relationship of weights used in the H infinity problem and the resulting controller is better understood. It is expected that the H infinity repetitive controllers designed using this approach will perform at least as well as currently available repetitive controllers. Usefulness of the controller design procedures developed here and of the controllers themselves will be established by application to closed loop servohydraulic testing. The use of servohydraulic actuators raises considerations of actuator-related nonlinearities which are specific to this application. These nonlinear effects will be characterized as model error, in terns compatible with the H infinity controller design procedure. Furthermore, the stability of repetitive control systems with these nonlinear effects will be evaluated by appropriate stability analysis techniques.*** //